Collaborative Research: Web-based, Active Learning Modules for

Engineering Other -(59)

The engineering education literature has consistently established the ability to use statistical quality tools and principles as a competency gap for engineers in the United States. Thus, the purpose of this project is to investigate the use of simulation-based active learning tools to effectively teach engineering students key principles of quality engineering when designing manufacturing systems. Specifically, this active learning environment allows students to study the status of the manufacturing plant and extract data, as well as design, implement, assess, and evaluate control charts within a virtual manufacturing plant that manufactures and assembles optical mice for personal computers.